POWRE: Adaptation and Application of Classical Light Scattering for the Nondestructive Evaluation of Art and Historical Objects

9870407 Rutledge This project utilizes angle-resolved light scattering to study materials science aspects of historical and artistic objects. Light scattering is based on the differences in refractive index of a feature and its surrounding matrix. Thus, it is possible to carry out light scattering experiments without staining if appropriate contrast is present. For the materials to be studied, primarily ancient glasses, these features exist in the form of inclusions, voids, and bubbles. The distribution, size and shape of such defects provide valuable information on the method and conditions of production and processing. In addition, the index of refraction allows identification of impurities, providing information on materials resources and fabrication techniques. This project will develop and extend this analytical tool to include the study of vitreous materials from the Antioch mosaics and the glass beads of Nippur. A critical part of the project is modifying, analyzing and understanding the data and further developing the theory of light scattering for solid state defects on the order of a wavelength. These extensions of current capabilities will also be of value in studying more traditional materials, including chemical vapor deposited diamond films, optoelectronic materials and connective tissue. New undergraduate research projects have been initiated, and an undergraduate program in this area will be developed, and offered by Worcester Polytechnic Institute in conjunction with conservation departments at the Worcester Art Museum and at the Conservation Analytical Laboratory at the Smithsonian Institution. %%% This is a research enhancement grant made under the Professional Opportunities for Women in Research and Education (POWRE) program. The project will contribute basic materials science knowledge and materials characterization capabilities to the study of historical and artistic objects.